Collaborative Research: Placing High-Redshift Quasars in Perspective: a Gemini Near-Infrared Spectroscopic Survey

Part 1

Shining brighter than a trillion suns, quasars are the most luminous persistent
sources in the universe. These cosmic powerhouses form when gas is funneled
toward giant black holes at the centers of galaxies. Since quasars are thought
to shape the growth of their galaxies, better understanding these sources is one
of modern astronomy's major goals. This project makes new telescopic
observations over several years to improve estimates of the most basic
properties of quasars, enhancing a wide range of astronomical studies.

Some 350 hours of infrared observations of 400 distant quasars with the
Gemini-North telescope in Hawaii will produce the best and largest data set of
its kind. Studying the infrared light will lead to better estimates of the
masses of the quasars' black holes, their fueling rates, and their distances
from Earth. These results will, in turn, help to develop improved equations for
these properties in the larger quasar population. Comparison with nearby quasars
will also show how these sources change over time, indicating how the galaxies
surrounding such quasars change as well. This project represents a stepping
stone in understanding quasars which, in turn, will enable more in-depth projects
at the forefront of modern astronomy.

Part 2

Quasars are the most powerful objects in the universe. They greatly outshine all
the stars in the galaxies in which they reside. They consist of growing black
holes, millions to billions of times more massive than the sun. Better
understanding these most energetic of objects, their properties, their effects
on the galaxies that surround them, and how they grow over time are important
questions in modern astronomy. This project will use one of the world's largest
telescopes to better understand some of the most powerful and distant quasars in
order to help answer these questions. Additional related areas at the forefront
of modern astronomy will benefit as well.

The main goal of this project is to substantially improve how we measure the
fundamental properties of distant quasars. These properties include the black
hole mass, fueling rate, and distance. Another goal is to see how these
properties have changed over time. To achieve these goals, the investigators
will use the Gemini-North telescope in Hawaii to observe the infrared light from
more than 400 distant quasars, thereby creating the largest and best such data
set to date. This effort will take 350 hours of telescope time over several
years. Analysis of certain features in the light of these sources will provide
the best measurements yet of key quasar properties. The results of this project
will yield new calibrations for quasars in general, and enable a wide range of
follow-up studies.